High Performance Network Connection in Support of Meritorious Research DakotaLink

ABSTRACT
"DakotaLink High Performance Network Connection in Support of Meritorious
Research"
PI: Bonnie Neas
North Dakota State University, Fargo, ND
ANI-9810225

This award is made under the high performance connections portion of
ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides
partial support for two years for a DS-3 connection to the vBNS for five
institutions in Dakotas: North Dakota State University (Fargo), University
of North Dakota (Grand Forks), South Dakota School of Mines and Technology
(Rapid City), South Dakota State University (Brookings), and University of
South Dakota (Vermillion). Applications include image acquisition and
analysis in life sciences, formation and evolution of structures in the
universe, Upper Missouri River basin hydrology, Landsat 7 related projects,
and chemical imaging of interfacial processes. Collaborating institutions
include NASA and USGS Upper Midwest Aerospace Consortium with University of
Montana, University of Wyoming and University of Idaho and EROS Data
Center, NCSA through EPSCoR participation in the PACI Program, NIH and
several other federal laboratories.